Oculomotor and Pupillary Development in Human Infants

The overall goal of this research program is to investigate oculomotor and pupillary immaturities of the infant's visual system and map how these immaturities change, systematically or otherwise, as the infants mature. In order to carry this out, Dr. Sandra Shea has initiated a series of experiments designed to describe and analyze some of the changes in the human infant's visual system in the first few months of postnatal life. What is of interest is the rate, pattern, and interaction of improvement. The questions under investigation share the common theme of looking at the rapidly changing visual system, but differ in the various aspects of the system being studied. Dr. Shea will concentrate on developing descriptive tests and quantitative measures for saccadic localization and tracking movements in infants. This work is important because until now, most of the work on human eye movement has been performed on adults and therefore, on mature visual systems. When confronted with abnormalities in the infant system, baseline (normal) data is absent which would explain to researchers or clinicians why various components of the oculomotor system are at different stages of development. The work supported by this award will aid in collecting that baseline data.